Seabird Habitat Patch Dynamics: Connecting Mathematical Models and Data

Henson, Hayward
Understanding and predicting fluctuations in numbers of
organisms in time and space is a fundamental issue in ecology.
The ability to accurately forecast the state of ecosystems with
mathematical models would enable, for example, rigorous
hypothesis testing, prediction of threshold phenomena, and
investigation of system response to disturbance. As in physics,
the primary challenges include the identification of scales at
which asynchronous individual-level activities form patterns,
mechanisms behind pattern formation, and appropriate methods of
data collection. During the last few decades, enormous progress
has been made in ecology through the integration of mathematics,
statistics, and laboratory experiments. The hypothesis that
fluctuations in animal abundance are explainable largely by
simple rules has been rigorously and successfully tested in
controlled laboratory studies. Robust qualitative and
quantitative prediction has become possible for several
laboratory systems, but this success has not been duplicated in
the field. The investigators wish to extend this success to the
field. The existence of a predictive mathematical model for a
field system, and a successful test of nonlinear dynamics theory
in the field, would constitute a major advance in ecology. In
preliminary work the investigators used the techniques of
dynamical systems theory to explain and predict the dynamics of
patch occupancy by seabirds at three temporal scales. Based on
this success, they now 1) develop an accurate mathematical
predictive model of the spatial distribution dynamics of seabirds
in a heterogeneous system of habitat patches, 2) rigorously test
nonlinear dynamics theory in the field, and 3) reduce the schism
between mathematics and biology by developing a paradigm of tight
interdisciplinary vertical integration. Integration of activities
is three-tiered, including interdisciplinary research,
substantial undergraduate participation, and development of a
quantitative literacy program for undergraduates. Collaboration
of undergraduates in a research team with the investigators is
expected to lead to publication and presentations by the
students. Courses in both mathematics and biology train students
in basic mathematical techniques applicable to biology.
The ability to predict how many plants or animals will
occupy a certain habitat at a given time could help solve many
pressing world problems related to the spread of disease, food
production, biological control, environmental protection, species
conservation, interference between national defense activities
and wildlife, and human population growth. Mathematical equations
have been used to accurately predict numbers of organisms in the
laboratory, but such successes have not been extended to
populations outside the laboratory. In preliminary work, the
researchers devised a mathematical equation that accurately
predicts fluctuations in the number of seabirds occupying a
specific habitat on Protection Island National Wildlife Refuge,
Washington. Given the day of the year, the height of the tide,
and the solar elevation for some specific time in the future, the
equation predicts the number of seabirds that will occupy the
habitat at that time. The ability of the equation to predict
several months into the future was tested and validated. The
researchers expand this technique to predict fluctuations within
an entire network of connected habitats. The birds are not
disturbed in any way; they are counted through a scope from a
33-m-high observation point on a bluff more than 100 m west of
the seabird colony. The research involves 1) collaboration
between mathematicians and biologists, 2) extensive research
participation by undergraduate students, and 3) development of a
biomathematics literacy program for both mathematics and biology
undergraduate students.